The Origin and Structure of Centrosomes in Embryos derived from Haplodiploid Parthenogenetic Insects

In most animal cells, the centrosomes, or microtubule organizing centers (MTOC), play akey role in chromosome segregation during nuclear division. They consist of a pair of centrioles
encompassed by a complex protein matrix. In most organisms, the centrioles are paternally
derived from the sperm basal body and the surrounding components are primarily derived from
the maternal cytoplasm. Organisms that undergo parthenogenetic development provide an
opportunity to study natural variants in centrosome formation and structure. The insect order
Hymenoptera (this includes ants, bees, and wasps) is characterized by haplodiploid
parthenogenesis, whereby unfertilized eggs develop as males and fertilized eggs develop as
females. Although the genetics, behavior, and ecology of species within this order have been
intensively studied, surprisingly few studies have directly focused on issues pertaining to the
centrosome. Preliminary results for one species within this order, the jewel wasp Nasonia
vitripennis, demonstrate that centrosomes form despite the lack of a sperm-derived basal body.
Numerous cytoplasmic asters form in both fertilized and unfertilized eggs after the completion of
meiosis. In unfertilized eggs, two of these cytoplasmic asters are captured by the female
pronucleus and these function as the zygotic centrosomes while the unassociated asters
disappear. In fertilized embryos, the sperm derived centrosomes function as the zygotic
centrosomes and the cytoplasmic asters disappear. Because unfertilized eggs develop into males
and fertilized eggs into females, this is the first system described in which centrosomes are
reciprocally inherited. This project seeks to further characterize centrosome inheritance and
structure in Nasonia. These studies are likely to yield novel mechanisms of organizing
MTOCs and also provide new insights concerning the evolution and developmental consequences
of parthenogenesis. The three specific aims of this project are:
1. To further characterize the behavior of the cytoplasmic asters in fertilized and unfertilized
embryos through live fluorescent microscopy.
2. To characterize the centrosome inheritance pattern in Nasonia strains in which development
of unfertilized or fertilized eggs is specifically disrupted.
3. To characterize the composition and structure of the asters and centrosomes in fertilized and
unfertilized embryos through immunofluorescent analysis and thick section electron
microscopy.